Conference: Combinatorial Algebra Meets Algebraic Combinatorics

This award supports US-based participants at the conference “Combinatorial Algebra meets Algebraic Combinatorics” (CAAC) in 2026 and 2027. Initiated in 2004, CAAC is an annual conference held in Canada that brings together researchers specializing in combinatorial algebra and algebraic combinatorics to share recent advances on the interface of the two fields. CAAC 2026 and 2027 will each feature invited lectures by leading researchers specializing in a variety of topics across combinatorial algebra and algebraic combinatorics. Each conference program will also include contributed talks, a poster session, and time for informal mathematical discussions. These meetings aim to foster cross-disciplinary collaborations, and to support early-career researchers by exposing them to ideas from adjacent fields and giving them the opportunity to engage with the global mathematical community.

The 2026 and 2027 CAAC meetings will include lectures by experts in algebraic, enumerative, and geometric combinatorics, as well as in commutative and non-linear algebra, and in algebraic geometry. Each program will be designed to include recent research results, with particular emphasis on connections between fields. More information can be found on meeting websites; the current CAAC website is https://sites.google.com/view/caac2025.